Topology of Large Scale Structure in the Universe

Dr. Gott is developing analytic tools to analyze the topology of three dimensional large scale structure in the Universe. Dr. Gott is conducting 1 billion particle n-body simulations to produce various topologies and is adding hydrodynamics to the code. Observational data are smoothed to produce a density field. Then density field contour surfaces are constructed. If the smoothing length is larger than the correlation length, the resultant density fluctuations are still in the linear regime. Fluctuations in the linear regime grow in place by gravitational instability so that density contour surfaces containing a given volume fraction seen in the smoothed map made today should resemble those in the initial conditions.
***